CAREER: Experimental Mechanics and Modeling of Interactive Solids and Structures

The proposed research consists of work to characterize and model the
behavior of nonclassical materials exhibiting strong multi-field
interactions. In particular, recent experiments of certain shape memory
alloys has shown strain localization and subtle thermo-mechanical
interactions, for which no definitive models are yet available. The scope
of these experiments will be extended to include cyclic loading,
multi-axial loading, and higher strain rates. The objective will be to
develop thermodynamically based models that admit the possibility of
unstable mechanical behavior consistent with these experiments. The
educational component of this work will foster undergraduate and graduate
students' awareness of these non-classical materials through design/build
projects and new offered classes.